In Vitro Functional Analysis of Mitotic Mutants of the Fission Yeast, Schizosaccharomyces pombe

The ultimate objective of this research is to understand the molecular mechanisms that determine orderly chromosome segregation during mitosis. Two aspects of chromosome segregation, sister chromatid disjunction and spindle elongation, will be studied in vitro using the fission yeast, Schizosaccharomyces pombe. We have shown that in permeabilized cells of the mutant strain nuc2, which are arrested at metaphase, spindle elongation and chromosome movement can be reactivated in the presence of ATP and neurotubulin, but sister chromatid disjunction cannot. We will extend this in vitro functional analysis to wild type and other mutant strains arrested at appropriate stages of mitosis. We will describe the roles of microtubule sliding and polymerization during anaphase spindle elongation in vitro, the conditions required for reactivation of sister chromatid disjunction, and the roles of kinases in regulating these processes. In vitro complementation using spindle proteins prepared from functional permeabilized cell models or specific gene products produced in E. coli will be used to describe the roles of these proteins during mitotic events. Antibodies prepared against known spindle components or against gene products identified by genetic analysis will be used to interfere with in vivo mitotic function. Combined with an analysis of mutant phenotypes in vivo and localization of proteins by immunofluorescence, this analysis will be useful for understanding the role of specific gene products in chromosome segregation. The development of a functional in vitro model for chromosome segregation in a genetically manipulable organism could play a pioneering role in the field of mitosis.